Earth & Sky

9725791 Byrd The Earth & Sky radio series reaches over 2.8 million individuals in the United States each week. This grant, which will diminish each year over a four-year period, will enable the project to accomplish the following goals: * Continue production and distribution of the Earth & Sky radio series * Distribute a bi-annual booklet for teachers, Earth In the Classroom * Establish a partnership between the Earth & Sky Young Producers Contest and National Science and Technology Week. * Increase the visual content of Earth & Sky Online * Launch an * Earth & Sky Classroom Project to provide teachers and students with a guided "Internet Experience" simulated on a CD and, therefore, not requiring an Internet connection. * Produce and test a 156 segment "trial run" of a Kids' Earth & Sky radio series designed for the emerging Radio Disney network. Earth & Sky is produced and hosted by Deborah Byrd and Joel Block. They work with a team of producer/writers and interact on a regular basis with members of a team of over 90 science advisors.